Gromov - Witten invariants and integrable hierarchies

Abstract

Award: DMS-0306316
Principal Investigator: Alexander Givental

Gromov-Witten invariants characterize global properties of phase
spaces in Hamiltonian mechanics. The project concerns with
various problems of constructing and generalizing Gromov-Witten
invariants, developing methods of their computation, interpreting
the geometrical information they encode and understanding the
rules that govern relationships among them. In particular, the
role of integrable hierarchies and their Virasoro symmetries in
Gromov-Witten theory and in its mirror partner - singularity
theory - is to be investigated. To this end, certain vertex
operator constuctions based on the theory of vanishing cycles in
singularity theory will be explored as a promising tool for
describing and manipulating with integrable
hierarchies. Exploiting the twisted loop group of hiden
symmetries discovered recently in the structure of Gromov-Witten
invariants and uncovering the origin of the symmetries are among
key motives for this project.

In a broader prospective, the projects continues the legacy of
the past two centures in the development and application of
modern mathematics. The methods of algebraic geometry, topology,
group theory and quantum mechanics laid down in the classical
work of Gauss, Riemann, Lie, Klein, Poincare and Weyl come
together to address the problems posed lately by string theory in
its search for the ultimate unity of fundamental interactions.